MOREnet Expansion Phase 7

4 From: dstaudt at NOTE 3/25/94 11:10AM (1181 bytes: 25 ln) To: gclavon at nsf15 Subject: MOREnet Phase 7 ------------------------------- Message Contents ------------------------------- ---------------------- Original Header Lines (From NOTE) ----------------------- X-Sender: [email] Mime-Version: 1.0 Content-Type: text/plain; charset="us-ascii" ------------------------------- Message Contents ------------------------------- ABSTRACT "MOREnet Expansion Phase 7" University of Missouri - Columbia PI: William Mitchell NCR-9413031 This award adds four higher education institutions to the MOREnet state network: Avila College Kansas City North Central Missouri College Trenton St. Louis Community College St. Louis State Fair Community College Sedalla Faculty and students at the institutions benefit from access to the resources of the Internet, including libraries and supercomputers. In addition, they are able to communicate and collaborate with colleagues at other campuses in pursuit of research and educational projects. The award provides partial support of the project for two years.